Expedient Synthesis of Glycosaminoglycan Saccharides with Defined Sulfation Patterns for Probing Human Protein Interactions.

Researchers from The Scripps Research Institute are developing artificial intelligence assisted methods for the synthesis of complex carbohydrates known as glycosaminoglycans that are associated with many important cellular functions. Living cells are coated with carbohydrates that are essential for intercellular communication. However, cell surface glycans are extremely complex and very difficult to analyze and control, which has historically limited the understanding of glycosylation. To address this, the project integrates computational models with chemical synthesis to analyze the structure and activity of these complex sugars, with a specific focus on heparin hexasaccharides and heparan sulfate. The research team will utilize these new methods to decipher the structural relationships of these molecules and pave the way toward the prediction and synthesis of optimal glycosaminoglycan oligosaccharides for specific targets. Their discoveries could open a new avenue in biotechnology and provide novel opportunities for the early detection and treatment of diseases such as stroke and heart failure. Furthermore, this research will present excellent training opportunities for students and postdoctoral scholars with an interest in carbohydrate chemistry, biology, biotechnology, and drug discovery.

Glycosaminoglycans are often conjugated to proteins as proteoglycans for interaction with cytokines and receptors to transmit functional signals. These structurally heterogeneous carbohydrates contain unusual sugars such as uronic acids, amino sugars, and sulfated sugars, making them highly complex and diverse oligosaccharides. The research team will develop a general programmable method for the synthesis of these glycans with well-defined sulfation patterns covering all possible variations. This method will use designed disaccharide building blocks for the assembly of hexasaccharides, followed by the regioselective removal of orthogonal protecting groups to generate specific sulfation patterns. This approach is designed to increase scalability, require fewer building blocks, and rely on designed orthogonal protecting groups to produce a high level of structural diversity compared to existing approaches. The resulting products will be used to create a glycan microarray for the study of their interaction with glycosaminoglycan binding proteins and related peptides of fibroblast growth factors, antithrombin III, sulfatase enzymes, and cytokines. This analysis will determine the role of each sulfation in receptor recognition and associated disease mechanisms. Ultimately, this work will advance the scientific understanding of these complex glycans and facilitate the development of new biotechnology products and targeted therapies.